Purchase of a Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to modern NMR spectroscopy is essential to chemists who are carrying out frontier research. The Department of Chemistry at the University of Missouri, Columbia, will use this award from the Chemical Instrumentation Program to help acquire a high-field NMR spectrometer. The areas of chemical research that will be enhanced by the acquisition include the following: 1) New ozonide chemistry 2) Relationship between kestoses and the biosynthesis of plant fructans 3) Nitrosamine chemistry 4) Late transition metal mu-oxo and mu-imido complexes 5) Chemical and biosynthetic studies of Fusarium 6) NMR studies of slow molecular motions in molecular aggregates and macromolecules.